Research Experiences for Undergraduates in Atmospheric Sciences

This is the second award to the faculty members in Physics and Chemistry at NMIMT to establish an REU site to involve undergraduate students in campus research projects in atmospheric sciences. Present research projects include studies in atmospheric electricity and chemistry. Undergraduate students to participate in this program will come from NMIMT and other regional academic institutions.